CPS: Synergy: Collaborative Research: Collaborative Vehicular Systems

As self-driving cars are introduced into road networks, the overall safety and efficiency of the resulting traffic system must be established and guaranteed. Numerous critical software-related recalls of existing automotive systems indicate that current design practices are not yet up to this challenge. This project seeks to address this problem, by developing methods to analyze and coordinate networks of fully and partially self-driving vehicles that interact with conventional human-driven vehicles on roads. The outcomes of the research are expected to also contribute to the safety of other cyber-physical systems with scalable configurable hierarchical structures, by developing a mathematical framework and corresponding software tools that analyze the safety and reliability of a class of systems that combine physical, mechanical and biological components with purely computational ones.

The project research spans four technical areas: autonomous and human-controlled collaborative driving; scheduling computations over heterogeneous distributed computing systems; security and trust in V2X (Vehicle-to-Vehicle and Vehicle-to-Infrastructure) networks; and Verification & Validation of V2X systems through semi-virtual environments and scenarios. The integrating aspect of this research is the development of a distributed system calculus for Cyber-Physical Systems (CPS) that enables modeling, simulation and analysis of collaborative vehicular systems. The development of a comprehensive framework to model, analyze and test reconfiguration, hierarchical control, security and trust differentiates this research from previous attempts to address the same problem. Educational and outreach activities include integration of project research in undergraduate and graduate courses, and a summer camp at Ohio State University for high-school students through the Women in Engineering program.